SHF: Small: Dynamic Abstractions for Verification

Verification is currently a major bottleneck in the design of the
hardware and software systems society depends on. Design errors
can lead to recalls, software crashes, cyber attacks, and even
the loss of life. A fundamental approach for identifying and
fixing design errors is to use formal verification, which checks
whether a set of system properties holds across all possible
system behaviors. Unfortunately, current algorithms suffer from
poor scalability and cannot be directly applied to modern
designs. This drawback is currently addressed with the use of
manual abstractions that in essence hide irrelevant
implementation details, thereby reducing the size of formulas to
be analyzed. Besides the manual effort involved, another
disadvantage of this approach is that it is very hard to
guarantee that an abstraction is correct. The goal of the proposed
research is to develop efficient methods for algorithmically
building provably correct abstractions, thereby drastically
improving the scalability of formal verification algorithms.

Our approach to finding correct abstractions is based on the
following three ideas. First, building an abstraction that is
correct in a small subspace of the search space is easy. Second,
one can stitch together abstractions found for subspaces to
produce an abstraction for the entire subspace explored so far.
Third, abstractions built for explored subspaces may hold in many
subspaces that have not been visited yet. This re-usability of
abstractions makes our approach extremely powerful in identifying
irrelevant parts of formulas. From a theoretical point of view,
the proposed research will lead to a better understanding of
abstractions and to the development of new formal verification
algorithms. From a practical point of view, it will result in the
creation of various kinds of tools including SAT-solvers and
model checkers that will boost the scalability of formal
verification.